CT-M: Theory and Practice of Accountable Systems

The project on the Theory and Practice of Accountable Systems investigates computational and social properties of information networks necessary to provide reliable assessments of compliance with rules and policies governing the use of information. In prior research, project leaders have demonstrated that achieving basic social policy goals in open information networks will require increased reliance on information accountability through after-the- fact detection of rule violations. This approach stands in contrast to the traditional mechanisms of policy compliance in network environments that rely on security technology to enforce rules by denial of access to resources at risk of abuse. So, access-based systems must be supplemented with accountability-based systems. To ensure that accountable systems can provide a stable, reliable, trustworthy basis on which to ground social policy arrangements in the future, it is necessary: 1) to research practical engineering approaches to designing these systems at scale, and 2) to develop a theory of the operating dynamics of accountable systems in order to establish what types of accountability assessments can be made, when those assertions are reliable, and what vulnerabilities accountable systems may have to attack, intrusion and manipulation. The key hypothesis to be tested regarding Information Accountability is that people are more likely to comply with rules (social or legal) if they believe that their non-compliance will be noticed. Successful study and development of accountable systems will ultimately enable real people, communities and institutions to take advantage of Information Accountability as a means of achieving better privacy and compliance with other information usage rules.